Collaborative Research: The Effects of Information, Mentoring and Time on Economic Faculty at MSIs

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

Faculty at Minority Serving Institutions (MSIs) make considerable contributions to educating and training science leaders. Yet, the National Science Foundation (NSF) has received few proposals from MSI faculty over time. This project will implement an intervention that will support MSI faculty in two ways. First, MSI faculty will be granted time to write and submit proposals to the NSF. Second, faculty will be mentored through the proposal preparation process. The project will evaluate the impacts of the intervention by collecting and analyzing data from mentees, i.e., MSI faculty participants. The intervention is expected to increase NSF proposal submissions by MSI faculty, improve their proposal preparation skills, and in the long run, contribute to greater inclusion of faculty at MSIs in STEM. Undergraduate students at will support the research process by assisting with data collection and analysis.

Prior initiatives suggest that a proposal mentoring intervention such is likely to change behavior through several channels, e.g., information awareness and feedback, role models and networks, cognitive load theory, and metacognitive awareness. Underlying these different theories of change, is a factor that seems to have been taken for granted: faculty’s time availability. This research will directly tackle time constraints by offering MSI faculty mentees a course release to write proposals and address other constraints through intensive mentoring, workshops, and debriefing. Findings will be derived from a mixed-methods approach that combines quantitative and qualitative data analyses (i.e., surveys and focus groups). Impacts will be assessed by comparing different outcomes, in particular proposal submissions to NSF, before and after participating in the intervention across a treatment group of mentees and a control group of those who applied but were not admitted. Findings will be disseminated at academic conferences, meetings with federal agencies such as NSF, and by means of a final report to be posted on the National Bureau of Economic Research.